Sensors: Optimal Deployment of Wireless Sensor Networks

Proposal Title: Optimal Deployment of Wireless Sensor Networks
Proposal No. : 0330203

Abstract

This sensor proposal focuses on finding optimal (or near-optimal) deployment strategies
for large-scale wireless sensor networks. With significant advancements in device
technologies, small, low-powered, low-cost sensors have become feasible today. These
devices can be deployed in large numbers to form a dense networked environment, with the
objective of gathering data for various purposes. Therefore, even though an individual
sensor device is expected to be cheap, the sheer number of the sensors would make the
monetary cost of deployment significant. Hence the question of cost-optimal deployment is
of prime importance. In the proposed project, we plan to investigate some fundamental
theoretical questions regarding optimal deployment of large-scale sensor networks, and
explore how our theoretical results can be applied to develop effective deployment
strategies in complex practical scenarios.

More specifically, the primary goal of this project is to develop sensor deployment
strategies that minimize the deployment cost while meeting desired objectives on
connectivity, coverage and network lifetime. This involves minimizing the number of
sensors used to monitor a given region while satisfying some specified deployment
criteria. We plan to consider different energy usage scenarios, and various practical
constraints on the placement of the sensor nodes. The questions that we propose to
investigate are important and timely, and must be addressed before networks of sensors
start getting deployed at large scales. Since connectivity, coverage and deployment
problems arise in a very wide variety of real-life scenarios, we believe that the
fundamental questions that we explore in this project could be relevant in areas other
than sensor networks as well.

We are also fully committed towards establishing links between research and education.
Apart from supervising graduate students, we plan to involve junior and senior level
undergraduates in developing a simulator, and carrying out large scale experiments. We
would also engage them in developing a software (to be made available publicly) that
incorporates our research ideas, and can be used for solving sensor deployment problems
in regions of arbitrary shapes and sizes, through the use of a graphical user interface.
We plan to introduce a new course on optimization in networking at the graduate level,
and introduce several topics and class projects related to ad-hoc and sensor networks in
the senior level introductory course on networking. We would make a special effort to
engage women and other under-represented groups in our research and educational programs.